CIF: Medium: Collaborative Research: New Approaches to Robustness in High-Dimensions

Rapid development of large-scale data collection technology has
ignited research into high-dimensional machine learning. For
instance, the problem of designing recommender systems, such as those
used by Amazon, Netflix and other on-line companies, involves
analyzing large matrices that describe users' behavior in past
situations. In sociology, researchers are interested in fitting
networks to large-scale data sets, involving hundreds or thousands of
individuals. In medical imaging, the goal is to reconstruct
complicated phenomena (e.g., brain images; videos of a beating heart)
based on on a minimal number of incomplete and possibly corrupted
measurements. Motivated by such applications, the goal of this
research is to develop and analyze models and algorithms for
extracting relevant structure from such high-dimensional data sets in
a robust and scalable fashion.

The research leverages tools from convex optimization, signal
processing, and robust statistics. It consists of three main thrusts:
(1) Model restrictiveness: Successful methods for high-dimensional
data exploit low-dimensional structure; however, many real-world
problems fall outside the scope of existing models. This proposal
significantly extends the basic set-up by allowing for multiple
structures, leading to computationally efficient algorithms while
eliminating negative effects of model mismatch. (2) Non-ideal data:
Missing data are prevalent in real-world problems, and can cause major
breakdowns in standard algorithms for high-dimensional data. The
second thrust devises relaxations and greedy approaches for these
non-convex problems. (3) Arbitrary Outliers: Gross errors can arise
for various reasons, including fault-prone sensors and manipulative
agents. The third thrust proposes efficient and randomized algorithms
to address arbitrary outliers.